Minority Postdoctoral Research Fellowship

WPCF 2 B V R Z P Courier 10cpi i 2 x x x , x @ 8 ; X @ HP LaserJet Series II HPLASER2.PRS x @ , t 0 vX @ 2 4 D #| x 9314749 Jones This is a minority fellowship travel award for exploratory visits to the University of Wisconsin Milwaukee, SUNY at Albany, and Indiana University at Bloomington and to attend and meet with potential mentors at the American Society of Criminology meeting in Phoenix. In these visits the PI will make additional contacts necessary to conduct her planned research on race, legal socialization, and behavior. ***